Leave the animals alone: Advancing magnetoreception and navigation through noninvasive approaches

Global Satellite Navigation Systems (GNSS) are widespread (e.g., GPS in the U.S.). However, satellite signals can become unreliable for a variety of reasons, particularly in underwater operations where satellite signals cannot reach. Additionally, satellites are costly, with the US spending billions annually to maintain its satellite network. In contrast, a variety of animals ranging from insects to turtles navigate across distances that span continents and oceans to specific destinations without a presurveyed route map. In addition to the five standard senses (sight, smell, taste, touch, sound), many animals appear to use the earth’s magnetic field, a sense called magnetoreception, to help them move from place to place. However, the exact way in which animals detect, process, and use the natural and time-varying magnetic field across multiple generations remains enigmatic. Using animal magnetic navigation as a guide, the proposed research will reveal key principles of animal magnetoreception that enable long-distance navigation. This work addresses a long-standing mystery in biology about how animals used magnetic fields for navigational purposes. For manmade navigation systems, this work can assist the development of new biotechnology-based navigation methods that are less reliant on GNSS and are therefore less expensive, more secure, and able to navigate anytime, anywhere. During the project, a new interdisciplinary college course will be developed that blends engineering and science. Also, a public facing science center display showcasing how engineering and science affect and relate to everyday life will be created.

Despite decades of research, it is unclear how terrestrial, aerial, or aquatic animals detect, process, and use the earth’s magnetic field, a sense called magnetoreception, to navigate across long distances. It is also unclear how animals negotiate a magnetic field that changes during an animal’s lifetime and across generations. Several animals are believed to use combinations of the earth’s magnetic field properties to navigate, but it is unknown how this strategy works at the neural level, behavioral level, or adapts to temporal changes. Magnetoreception is difficult to systematically probe directly in animals due to the large spatial and temporal scales involved, and an ongoing search for the underlying receptors. Furthermore, some animals are threatened or endangered, necessitating direct study while simultaneously limiting the studies that can be performed. Additionally, understanding animal navigation could serve as an inspiration for developing novel navigation systems that are less reliant on costly satellite-based navigation that is vulnerable and unavailable underwater. Using mathematical modeling and simulations in both computers and robots, this work aims to systematically probe how a navigation strategy based on combinations of magnetic properties enables successful navigation at the behavioral and neural levels in a time-varying magnetic field. The work will address how animals can reach distant locations without a pre-collected map, how nervous systems encode magnetic field properties, and how a magnetic navigation strategy can tolerate magnetic field changes.